Graduate Student Support in the Advanced Research Workshop on the Preparation of Nanoparticles in Solutions and in Solids, March 8-13, 1996, Szeged, Hungary

This award is jointly made in the Office of Special Projects of the Chemistry Division and the Eastern Europe Program in the Division of International Programs. The award will provide participant costs for eight U.S. graduate students at the `Advanced Research Workshop on the Preparation of Nanoparticles in Solution and in Solids` to be held in Szeged, Hungary, March 8-13, 1996. Participation will be by competitive application and each successful applicant will present a poster talk on his or her research in nanostructures or nanoparticles. Proceedings of the Workshop will be published. Nanostructures and nanoparticles find application in a variety of advanced materials, including electronic, optical, magnetic and biomolecular materials. This Workshop will bring together and integrate existing solid-state, physical and wet colloid-chemical methodologies, as well as lay the foundation for future synergistic endeavors among chemists, physicists and biologists.